Micro-Computer Interfacing in the General Chemistry Laboratory

This project will create modern, instrumentation-based laboratories for general chemistry students, science and non- science majors alike, by using a Microcomputer-Based Laboratory (MBL). In this system, a personal computer with a laboratory interface enhances the utility of laboratory instrumentation. The MBL system can serve as a pH meter, voltmeter, ammeter, light detector, thermometer, controller, or other instrument, as well as a data compiler and manipulator. The computer allows students to control the experiment, collect data, analyze it, and make a report of it in a manner not previously available in the general chemistry laboratory. All experiments in the course will be conducted in the MBL system. The grantee will match from non-Federal sources the NSF contribution to this project.